Applications of Algorithmic Techniques

This research will address a number of different topics in the design and implementation of algorithms. The common theme of the research is application of advanced algorithmic techniques techniques to practical problems. Four specific problem areas are under investigation: (1) N-body Simulation: This is a collaborative project with the UW Department of Astronomy studying N-body simulation. The basic objective is to improve the algorithms and data structures used for massive simulations. The scale of simulations raise quite a few interesting computational geometry problems. (2) Constraint Satisfaction: One method of developing graphical user interfaces is to use a system of constraints to specify the behavior of the interface. Algorithms will be developed to solve the types of constraint systems which arise in this domain. There will be particular emphasis on constraint hierarchies, and on the efficiency of solutions. (3) The Traveling Tourist Problem: The problem is to visit a set of cities in minimum time where travel is restricted to a periodic timetable. In other words, it is the traveling salesman Problem restricted to public transportation. Heuristic and exact algorithms for this problem will be developed and implemented. (4) Model Checking Software Specification: A technique from hardware verification will be applied to a major problem in software engineering. In the last several years, symbolic model checking has become a very important tool for hardware verification. This project is to investigate whether model checking can also be applied successfully to evaluate software specifications. The specification of TCAS, a collision avoidance system used in commercial aircraft will be a major case study for the project.